Networks, Middleware, and Applications for Next Generation Metasystems

This award is made under the high performance connections portion. It provides partial support for an OC-3 connection to the Very High Performance Backbone Network Service (vBNS) via the Virginia Broadband Education Network (VBEN).With this high performance network capability the University of Virginia will support the Legion project. The objective of Legion is to create a wide-area virtual computing environment for researchers that transparently accesses data and computational resources across the country. On this project, collaborating institutions include: San Diego Supercomputing Center California Institute of Technology Old Dominion University Virginia Tech The award provides partial support of the project for two years.